NRT-HDR: Integrative Training in Data Science-Enabled Sensing of the Environment for Climate Adaptation (DataSENSE)

Maintaining the quality and availability of America’s land, water, air, and natural resources is essential to the Nation’s economic strength, public safety, and long-term prosperity. Rapid advances in sensor technologies, data availability, artificial intelligence, computational methods, and high-performance computing are creating new opportunities to monitor environmental conditions, manage natural resources, strengthen infrastructure, and address hazards more effectively. Realizing these benefits requires a highly skilled American workforce capable of applying data science across scientific and engineering disciplines to solve practical, real-world problems. This National Science Foundation Research Traineeship (NRT) award to Michigan Technological University will advance U.S. leadership in critical technologies by training PhD students in data-science-enabled environmental sensing. The project will prepare 28 PhD students, including 15 funded trainees, from fields such as computational and data sciences, forestry, geological engineering, and environmental engineering. Graduates will be equipped to develop and deploy advanced sensing and data-analysis tools that support responsible resource management, resilient infrastructure, disaster preparedness, and American technological competitiveness.